Chem-Mystery: A Hands-On Chemistry Exhibition

9453810 White The Lawrence Hall of Science will develop a 3000 sq. ft. traveling interactive chemistry exhibit in which visitors will conduct a variety of basic chemical tests within the motivational genre of solving a mystery. Chem-Mystery will invite visitors into an Old House facade where two non-violent mysteries have occurred. Visitors will chose a mystery (either the case of the missing toy boat for youngsters or the case of the missing money for older children and adults) to solve. After learning the facts surrounding the case from videos of the chief detective and the suspects, visitors will collect evidence from the scene of the mystery and then proceed to the Forensics Laboratory. The Lab will contain 15 hands-on stations where visitors explore fundamental chemistry concepts while using chemistry as a tool to analyze clues. Complementary educational materials will be developed. A 20 page Going Further Guide will contain activities that can be done at home using techniques introduced in the exhibit. Teacher workshops will be held to introduce teachers to concepts in the exhibit and methods on how to incorporate the exhibit activities in their curricular agenda. These materials plus other general set-up information will be included in an Exhibit Installation Handbook. After opening to the public at the LHS in January 1996, it will begin its tour in October, 1996 to nine US science centers. It has the potential of reaching about 800,000 people during the twenty-seven month tour. The exhibit design will be reviewed for universal accessibility. It will be produced by the staff of the Lawrence Hall of Science and circulated by ASTC. ***